CAREER: The Distribution and Expression of BTX-Degrading Microorganisms in Anoxic/Aerobic Single-Sludge Biological Treatment Processes

9502450 Love This is an award to provide the support this investigator requested in response to NSF 94-101, the National Science Foundation Faculty Early Career Development (CAREER) Program which has the intent of encouraging the early development of academic faculty as educators and researchers. The research this investigator plans to conduct is directed toward improving our fundamental understanding of the biodegradation patterns of benzene, toluene and xylene compounds in an anoxic/aerobic sequencing batch, suspended biomass reaction process for treatment of wastewater containing these pollutants. The investigator's education plan involves incorporating the research procedures into courses to illustrate the beneficial attributes of combining physical and biological approaches to the engineering design of systems to accomplish useful environmental goals and objectives. Results of this investigator's research are likely to improve the approaches taken toward engineering design of sequencing batch reaction processes for removal of benzene, toluene xylene compounds from wastewater. The teaching plan she plans to pursue is likely to produce innovations in the way that environmental engineering undergraduate courses are taught. ***